Influence of Configuration on Building Seismic Performance: The Chilean Earthquake of March 1985

Architectural configuration of buildings is important to the structural performance of buildings during seismic loadings. Observations from historical earthquakes have confirmed the importance of size, shape, and proportion on seismic performance. This research project will identify the influence of architectural configuration on the behavior of reinforced concrete buildings during the March l985 Chilean earthquake. The findings of the research will be related to comparable U.S. buildings and will represent a significant expansion of our knowledge base for applications to seismic design methodologies and building codes. The research project will include data acquisition, engineering analysis, architectural analysis, and cross-disciplinary integration.